RAPID: Record temperatures and missing snowpack: A test of extreme conditions on montane ecosystems

Rocky Mountain ecosystems are important for understanding environmental variability. During the winter of 2025-2026, the western United States experienced an exceptionally warm conditions, with 37 daily high temperature records broken and 19 days with the lowest snowpack in more than 50 years. Hillsides at high elevations typically covered in deep snow were exposed, and mountain streams likely reached peak flow much earlier than usual. Rocky Mountain Biological Institute is an ideal place to evaluate ecological questions related to plant and ecosystem sensitivity to drought and warming, with decades of data on montane ecosystems as well as experimental plots with temperature treatments. Experts in soil, plant, and microbial processes will collect new data on numerous aspects of montane ecosystems as they respond to record-breaking conditions. Data will be compared to previous plant, soil, fungus, and other ecosystem components. As such, this project will advance science by shedding light on ecosystem resilience and specifically how past environmental conditions may affect ecosystem responses. Stakeholders will be kept informed of insights that may be helpful for local communities and land managers. Project scientists will produce educational modules based on the project’s findings and will mentor early-career researchers and students through research training during the project.

This project will investigate how resilient montane ecosystems may be to extreme winter events as well as how prior events may affect ecosystem responses, including implications for primary productivity and nutrient cycling. The project will conduct two intensive rounds of sampling plots that are part of ongoing montane ecological research across elevational gradients, including three plots altered by prior experimental warming. The project will directly test legacy effects on ecological responses to the 2025-2026 extreme winter. Seven related hypotheses will be tested using a range of methods to quantify above and below-ground plant and soil microbial processes. The work will be conducted across an elevation gradient. Students will be trained at an internationally recognized research station, and all project data will be made publicly available. Project scientists will also engage in outreach, sharing findings with the broad range of stakeholders, and a new educational module will be developed for use in a field course offered to high school students.